MGR Honorable Mention: Eva Charfauros

This special award will give graduate student Eva Charfauros additional flexibility in pursuing her graduate studies and research initiation in sociology. The proposed research will undertake a comparative study of two university programs designed for 'third world and minority students' (one at Brown, the other at the University of California at San Diego). Through a combination of site visits, informal interviews and retrieval of archival materials, this PI will study the relationship between the organization and administration of these programs and the relative achievement of their founding goals -- to enhance the access of minorities to higher education and their academic success in college. This is a timely topic closely related to the Foundation's abiding concern for the increased recruitment of minorities in science and engineering. This award grows out of a special directorate level program to enhance the graduate education of previous applicants of minority fellowship programs receiving honorable mention ratings. This award should strengthen minority research participation in sociology.